Auburn Regional Undergraduate Inorganic Chemistry Faculty Enhancement Workshop - June 1989

A week-long workshop in inorganic chemistry is being held to give regional undergraduate faculty experience in some modern techniques and some exposure to the chemistry of binuclear organometallic compounds. It is expected that the experience will enhance their comprehension of these developments, and that they will adopt some of the laboratory procedures in their own curricula. The mornings are being used for the lectures with the afternoons involving hands-on experiments. The first day is being devoted to the bench top reaction chemistry of ıFe(Cp)(CO)2!2, Fe(Cp)(CO)2I, and related compounds. During the remaining four days the participants are being divided into five groups, and these groups are rotating through their choice of four out of five sessions in a sequence of technique-oriented sessions. The sessions are: NMR; Electrochemistry; IR; MO calculations; and X-ray crystallography. The facilities at undergraduate institutions are adequate to conduct many aspects of these projects. The aspects that cannot be supported by undergraduate institutions, such as X-ray diffraction, are of value in enhancing the faculty comprehension of topics that nevertheless must be presented to students in lecture.